Subcellular Localization of Opioid Receptors

Biochemical molecules called neurotransmitters carry signals between nerve cells, or neurons, in the brain. These neurotransmitters bind to specific molecules that act as receptors on the cell membranes of target neurons. One class of these receptor molecules is called G-protein coupled receptors, because they are linked to a class of particular proteins. When a neurotransmitter signal persists for minutes, the response of the target cell diminishes. One of the mechanisms for this desensitization is the uncoupling of the receptor molecule from its G-protein. Recently it has been found that during stimulation for many minutes by opiate peptide transmitters such as enkephalin and endorphin, a large fraction of the opiate receptor molecules leave the surface of the cell membrane to enter the cell in a process called internalization. This project uses particular labeling techniques, biochemistry and microscopy to test the novel idea that these internalized receptor molecules become associated with the nucleus inside the cell, and may play a role in gene expression initiated by opiates. Results will be important for understanding at the molecular level of how neurotransmitters may be linked to genetic modulation of longer-term responses, and so will be potentially important for behavioral as well as cellular neuroscience.